Student Travel Grant: IMC2004

Abstract

The technical programs for the past workshops are available online at [1-3].
IMC is the primary venue for presenting new research results on collecting and analyzing
measurements of the Internet. Last year's conference in Miami had more than 120 attendees. This
proposal requests funding to aid graduate students enrolled in institutions in the United States in
attending this premiere conference. Attending conferences such as IMC is of paramount
importance for graduate students pursuing research in the field. Authors have the opportunity to
present their work and all attendees have a chance to interact with many others performing
leading-edge research in the field.

This proposal will serve to widen the audience attending the Internet
Measurement Conference, raising the level of interaction and the potential for new collaboration,
new investigations, and higher quality research.

This proposal, by enabling students to attend who might not otherwise be able,
will increase the dissemination of the conference's research results to a larger and more diverse
audience. By giving preference in grant awards to women and minority students, we hope to
widen the participation among these underrepresented groups. Furthermore, by advertising to a
wide range of colleges and universities, participants from a more diverse set of institutions should
be able to attend and benefit from the conference.